Mathematical Sciences: Problems in Nonlinear Partial Differential Equations

This project supports graduate students working with Professor Joel Smoller on problems in geometrical partial differential equations. Particular emphasis is placed upon the study of spherically symmetric Einstein-Maxwell and Einstein- Yang-Mills equations. More generally, semilinear elliptic equations and systems with symmetry are studied from the point of view of bifurcation theory and symmetry-breaking. The associated time dependent problems are studied using topological techniques such as the connection-matrix method. The particular equations under consideration have relevance to areas of mathematical physics such as cosmology, gravitation and the formation and stability of black holes.